Advances in Meteorological Sensing, Analyzing, and Forecasting

9353910 Geer The American Meteorological Society, in cooperation with the U.S. National Weather Service/National Oceanic and Atmospheric Administration, will conduct an undergraduate faculty enhancement project for instructors of introductory courses containing significant weather content. The purposes of the program are to: (a) provide renewal and updating learning experiences that focus on dramatic recent advances in operational meteorology and atmospheric research, (b) make available pre-existing and participant-developed laboratory and other student learning materials that emphasize the processes by which the workings of the atmosphere are sensed, analyzed, and predicted on a real-time basis, and (c) acquaint participants with the instructional and research potential (faculty and student) of the meteorological data and information bases available via a variety of data stream sources. Central to the program will be the offering of a two-week workshop held twice (in Summers 1994 and 1995) to a total of 48 participants at the National Weather Service Training Center, Kansas City, MO. ***